Collaborative Research: A Multidisciplinary, Field-Based Study of the Little-Known Kinda Baboon (Papio cynocephalus kindae)

The physical, behavioral and ecological diversity of baboons (genus Papio) makes them a fruitful source as analogies for understanding early human evolution. This project investigates a widespread but little known species, the kinda baboon (P. kindae), and probes the physiological and genetic bases of its distinctive behaviors and physical features. Besides being unusually small and juvenile in appearance, kinda baboons appear less sexually differentiated than other baboons. Behaving like females of other species, adult male kindas frequently initiate long grooming sessions, while females often give alarm barks, which is normally a male baboon activity. Unexpectedly, kinda baboons hybridize with neighboring chacma baboons (P. ursinus) which are almost twice their size, and are behaviorally more typical. This research project traces the causes of these species differences from the level of observable behavior and anatomy, through the level of development and hormonal control, to the level of the genome. Over 200 kinda, hybrid, and chacma baboons are trapped, sampled, and released unharmed in Kafue National Park, Zambia. Basic biological data such as weight and body measurements are collected along with blood samples. Specialist labs investigate these blood samples for the hormones and other biologically active components that influence growth, sexual differentiation, and behavior, and produce a high-resolution map of the kinda genome. Physiological differences that consistently distinguish kindas can then be tracked to the genetic level, by comparing fast-evolving candidate regions in kindas with homologous regions in other baboon species.

The project is innovative in combining proven, comparatively low-tech field techniques with cutting edge technology in genomics and hormonal physiology. Most immediately, it fills a major gap in our knowledge of a key primate genus. In the long term, it provides insights into behavioral variation and evolution in other species, including humans. In the wider sphere, the project will train graduate students, further scientific collaboration with Zambian Wildlife authorities, and promote the status of baboons in wildlife tourism.